Nonlinear Geometric Optics

Mathematical Sciences: Nonlinear Geometric Optics

0104096
Rauch

The project concerns the development and analysis of new
asymptotic methods to study short wavelength solutions of
nonlinear hyperbolic partial differential equations.
Short wavelength asymptotics, also known as geometric
optics, is one of the most penetrating and widely
applicable methods for analyzing partial differential
equations. Traditionally applied to linear problems, the
method has recently been employed to furnish rigorous
results in the nonlinear context. This project continues
the development of the method for treatment of nonlinear
problems. Special emphasis is placed on analysis of
solutions that model ultrashort laser pulses and on the
behavior of both wave trains and pulses upon crossing
focal points.

This project develops new mathematical tools to describe
the propagation of waves whose form is that of short
pulses. The technique, called asymptotic analysis,
studies such pulses in the limit as the wavelength of the
pulse becomes shorter and shorter. In such limiting
situations, much can be learned about solutions of the
underlying equations, which express physical laws such as
Newton's second law for fluids or the laws of
electromagnetism. This project develops the technique to
analyze important nonlinear equations that arise in a
variety of applications. Special attention is given to
diffractive effects that occur when rays of geometric
optics stay close together for long times, and to the
effects that occur when pulses focus in a nonlinear
regime. Promising preliminary results show that standard
numerical techniques can be improved in both accuracy and
simplicity. The results of this project will yield
reliable procedures for numerical simulations of
important physical systems, including lasers that produce
ultrashort pulses.